On-Line PTH Analyzer

Funds are requested to upgrade a Model 470A gas-phase peptide sequencer to allow on line analysis of PTH derivatives. This upgrade is requested so that sensitivity of the instrument will be increased and to automate parts of the analysis that are now done manually. At least five investigators will make extensive use of the upgraded instrumentation. The projects that will make use of this instrument include projects that are designed to establish structure-function relationships in proteins. In some experiments, the sequence analysis will be used to confirm the results of mutagenesis experiments, i.e. to demonstrate that a given recombinant DNA gives rise to the expected protein sequence. In other experiments fragments of proteins will be generated for sequence analysis to establish the nature of fragmentation occurring after limited proteolysis. Another type of experiment will involve sequence analysis of peptides that have been modified to allow identification of phosphoserine residues, which cannot be identified by sequence analysis of the unmodified peptides. Proteins that will be studied include glycogen synthase from rat skeletal muscle and from yeast, protein kinases, dihydrofolate reductase from several sources including forms that are generated by site-directed mutagenesis, folate binding proteins, myofibrillar proteins, various mutants of transforming growth factorbeta obtained from cultured cells, and fragments of soybean lipoxygenase. For many of these experiments, high sensitivity is critical since only limited amounts of peptide or protein will be available. The requested upgrade of the peptide sequencer will provide this increased sensitivity needed for these experiments.